RUI: Dynamic Interaction of Pitch and Loudness

In a natural listening environment many sounds exhibit a positive
correlation between changes in pitch and loudness. As sounds get louder,
they tend to get higher in pitch. Surprisingly, most previous research on
pitch and loudness perception has used static tones that remain constant in
both frequency and intensity. This has yielded static structural models of
pitch and loudness perception that may not accurately reflect the perception
of pitch and loudness in a natural listening environment. Recent work has
shown that under dynamic conditions, pitch and loudness interact in a way
that is opposite that predicted by these static models. The current project
sets forth a theoretical framework in which it is proposed that the dynamic
perceptual interaction of pitch and loudness has evolved to take advantage
of the correlation between frequency and intensity change that occurs in a
natural listening environment. Under various experimental conditions,
listeners will be presented with frequency- and amplitude-modulated sounds,
and in a variety of psychophysical experiments make perceptual judgments
about positively and negatively correlated changes in frequency and
intensity. The findings will provide an empirically based, theoretical
account of dynamic pitch and loudness interaction, and provide some
preliminary information about the location of the mediating neural
mechanisms. The work has potential implications for the hearing impaired,
communications, auditory display, and sensory substitution systems for the
blind.